Instrumentation to Enhance the Cell Culture Component of a New Course in Molecular and Cellular Techniques

Undergraduates will have an opportunity to expand their expertise in important laboratory methodologies in a new course in Molecular and Cellular Techniques. The course involves a practical hands-on approach. In the eukaryotic cell culture component of the course, students learn widely-used methods involved in the propagation, enumeration, screening, and genetic manipulation of plant and animal cells. New laminar flow hoods, tissue culture phase microscopes, incubators, and a low temperature freezer will enable class participants to individually practice and apply a larger number of these methods more extensively. This enhanced technical training will allow them to prepare more effectively for research careers and graduate school. The university will provide 50% matching funds.